Database Methods in Expert Systems

In recent years rule-based and frame-based systems became popular tools for developing a wide range of knowledge intensive applications. Although these tools provide significant help to the application developer, building expert systems remains a largely ad hoc and a very labor-intensive activity. Recent achievements in knowledge representation and deductive database research made time ripe for attempting a systematic logic-based approach to expert systems. The proposed contention is that expert system programming can be made more declarative by releaving the developer from the burden of specifying most details of control strategy. This burden should be taken over by the system which will use various optimization techniques to achieve desirable response time. In this research, a language which integrates rules and frames under one roof, and is suitable for reasoning with uncertainty will be designed and implemented. Being purely declarative, this language will allow shortening of the development phase of knowledge-intensive applications and make them more reliable and extensible. Industrial expert system developers as well as knowledge engineering researchers will benefit from theresults of this research.